Decentralized Control For Structrural Uncertainties: Power Systems Applications

This project plans to use Genetic Algorithms for the detection of structural system disturbances in a dispersed manner and to coordinate their use with adaptive controllers capable of dealing with these structural uncertainties. These ideas are to be merged with interval mathematical methods for dealing with the system uncertainties in a formal and rapid manner without the excessive conservatism sometimes associated with these methods. When these ideas are applied to power systems, the objective of the proposed work go well beyond the scope of present system relaying practices in that permissible actions include not only line disconnection, but adjustment of many control settings of rapid-acting components in the system, such as the new FACTS devices being introduced into power systems. The proposed methodologies should integrate smoothly with centralized control and dispatch policies based on Optimum Power Flow technology.